Dynamic Modeling of Stratigraphic Sequences

This is an investigation of the systematics of sedimentary sequence formation at Atlantic type margins; that is, the relationship between sea level change and sedimentary record at a subsiding basin margin. The goal is to be able to interpret seismically measured or determined sedimentary sequences in terms of: (1) correlatability with like sequences elsewhere and with a eustatic sea level curve, (2) improved determination of the amplitudes of eustatic sea level change, and (3) interpretation of sequences in terms of depositional environments. This modeling and analysis effort will consists of numerical modeling of sequences, analysis of the present day Pleistocene sedimentary and geomorphologic processes that are responding to glacioeustatic signals, and backstripping and reconstruction of the morphology of the Miocene sequences of the New Jersey shelf.